Electric Vehicle Power Control

This Small Business Innovation Research Phase I project proposes an innovative solution to the design of a power electric drive system capable of operating in all four quadrants with maximum efficiency. The controller is insensitive to system parameter changes and is stable. The system operates synergistically in that each of the major subsystems (motor, inner inverter control loop, outer speed control loop) is chosen or designed in such a way that maximum efficiency is a constant goal. The proposed solution is a unique combination of a PMBDC high efficient motor, an innovative voltage inverter design, and a self-organizing fuzzy neurocontroller, each of which acts to maximize some aspect of the controller operation while compensating for the disadvantages of the rest of the system. The controller described here would be very suitable for use in electric or hybrid vehicles. The main technical advance is extending the speed range of a PMBDC using a unique inverter design and controlling the speed with an unusual self-organizing fuzzy controller.